Bethune-Cookman College Access to CSNET

Bethune-Cookman College faculty will be given access to CSNET which includes partial functionality on the Internet over a two year period. This will encourage cooperative research and collaboration with researchers at other institutions. Services provided will include electronic mail, remote file transfers, a subset of USENET News, and some experimental use of remote logins. Faculty at the college who need access to these services have been identified and will be tracked to measure the impact of this project on their research productivity.